CAREER: Electrohydrostatics, Electrohydrodynamics and Microstructural Evolution During Electrodispersion Precipitation

9700860 Harris The objective of this Faculty Early Career Development project is to study the fundamentals of electrohydrodynamics and mass transfer with chemical precipitation that occur in electro dispersion precipitation processes. This proposal addresses the physical, chemical and engineering issues that govern electro atomization in liquid-liquid systems and the formation of solid particles from microdroplets. The drawback to improving electrodispersion precipitation processes in liquid-liquid systems is the lack of a fundamental understanding about the electrohydrodynamics of the atomization process and the mass transfer with chemical precipitation that occurs in the dispersed phase. A tremendous amount of literature has been generated on the electroatomization of pendant and sessile drops in liquid-air systems. However, very little research has been done to understand the effect of static and pulsed electric fields on conducting pendant/sessile drops and liquid streams emanating from a nozzle and immersed in a low dielectric constant liquid. Specific questions include the effect of static and pulsed electric fields on pendant drops and the conditions under which shells form rather than microspheres. Additionally, this research project will be integrated into a series of graduate- and undergraduate-level courses that the PI is developing on the "Science and Engineering of Colloidal Systems." The courses will discuss the fundamentals of hydrosol and organosol synthesis, surface science and engineering, and the effect of electric fields on colloidal systems and surfaces. The PI also will spend at least two weeks per year during the summer conducting science and engineering camps to encourage junior high and high school minority students to pursue degrees in science and engineering. %%% This work will have a significant impact on increasing the throughput of all liquid-liquid electroatomization processes and on the production of microparticles with co ntrolled morphologies, size, and composition. Improvement of this technology will lower the cost of ceramic starting powders for high technology applications. ***